NSF Minority Graduate Student Travel Award

This actions funds a Minority Graduate Student Travel Award for a short visit to the Consejo Superior de Investigaciones of the Institute Cajal in Madrid, Spain in November, 2000. The recipient will present a seminar on his studies on brain plasticity and will investigate the possibility of conducting postdoctoral research in this laboratory.